Digital Government: Harvard Forest Carbon Exchange Modeling Work in Connection with Digital Aerial Image Analysis by UMass, Amherst

EIA-0121167
David R. Foster
Harvard University

SGER: Digital Government: Harvard Forest Carbon Exchange Modeling Work in Connection with Digital Aerial Image Analysis by UMass, Amherst.

This grant will support preliminary explorations for applying digital video aerial image analysis to long-term issues of global warming, in particular carbon cycle modeling, in the government arena. Many government agencies are already using GIS heavily, but in a less dynamic way, relying on single images in time, without fine-grain time references. This project will explore government uses of real-time imaging, at resolutions beyond what can be achieved with commercial satellite images, allowing the digital film to be geo-referenced, integrated with data streams from other sensors, and viewed in 3D through polarized glasses.